FRG: Collaborative Research: Developing Spectral Methods for Numerical Solutions of the Einstein Equations

In this effort, we form a new interdisciplinary team, comprised of
computational mathematicans and astrophysicists, to focus on the development
amd analysis of a new generation of simulation tools centered around
spectral multi-domain methods. Initial tests have confirmed the potential
of such techniques
which, however, still require significant algorithmic developments,
e.g., efficient nonlinear parallel elliptic solvers, stabilization
techniques, and novel parallel temporal integration methods, to mature
sufficiently. Simultaneously, attention will be paid to problems of a
nature more specific to the Einstein equations, e.g., the initial data
problem, control of constraint violating solutions, and suitable
boundary conditions.

New urgency has been injected into numerical relativity and the
development of computational methods for solving the Einstein
equations by the current deployment of gravitational wave detectors,
LIGO and, in the near future, LISA. To fully understand and analyze
the signals measured with such facilities it is essential that a new
generation of computational tools be available for solving the dynamical
Einstein equations over very long times. In this interdiciplinary
effort we combine expertize in computational mathematics and
astrophysics to reach this goal, with the aim of modeling the full
dynamics of a binary pair of black holes, conjectured to be a strong
source of gravity waves as predicted by the general theory of relativity.
Thus the effort will not only lead to the development of new
computational simulation techniniques but also lead to the ability
to test the validity some of the most fundamental physical theories
known to mankind.